Oceanographic Technical Services, 2009-2011, RV Endeavor

University of Rhode Island proposes to support technical services on R/V Endeavor, a 184’ general purpose research vessel operated as part of the University-National Oceanographic Laboratory System research fleet. The proposal requests support for basic services and specialized services. For basic services, they will provide one shipboard technician on each cruise of R/V Endeavor to support seagoing research projects and to maintain, calibrate and provide for qualified users items from their pool of shared-use research instrumentation.